Composite Liquid Crystals

The objective of this three-year renewal of a U.S.-Yugoslav cooperative research project in solid state physics between Robert Blinc of the Josef Stefan Institute and William J. Doane of Kent State University is to study composite liquid crystals and their interactions with surfaces. Previously the investigators received support for their resesarch on chiral (or twisted) liquid crystals, ferroelectric and lyotropic liquid crystals. In this new project the work will be extended to include new composite liquid crystal materials: ferroelectric crystal drops dispersed in polymers. The investigators lead two of the three top research institutes in this field worldwide. Their past collaboration has led to joint publications and most recently they applied for a joint patent on their invention which is called "Low Loss Liquid Crystal Modulator for Coloring and Shaping a Light Beam. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The grants are composed principally of Yugoslav dinars and made to the principal Yugoslav institute. Grants include travel for U.S. scientists to Yugoslavia and a modest dollar allowance for Yugoslav scientists' living expenses in the U.S.